Speaker Independence and Accent Adaptation by Connectionist Networks

This research is to use connectionist networks to provide high accuracy, speaker- or accent-independent speech recognition. Recurrent connectionist networks and meta-pi networks, an architecture that uses multiplicative gating connections, provide the framework. Subnetworks provide speaker-specific models. Automatic methods to learn and maintain large speaker sensitive nets will also be studied. These networks will provide slower adaptation and will aid in automatic initiation of new units or subnetworks as they are incorporated. The techniques will allow for dialect and accent adaptation as well as speaker identification.